Party Organization as Party Coalition Building (Political Science): VPW

Coalition building as an appropriate measure of party organization is the focus of this study. Aspects include examining how prospective gubernatorial candidates form coalitions in order to win their party's nomination. This involves the people they ask to join their campaign for the nomination, the resources these people have, the strategies they use to win and the results. This research will help reveal the circumstances under which parties are unified or divisive in the performance of this function, and the type of organization which is associated with unity or division. Collegial interaction at the Institute for Governmental Studies will aid in the analysis of the data and the conclusions which arise from them. The major objective of this research is to discover the role of the political party in the nominating process. The project furthers VPW program objectives to provide opportunities for women to advance their careers in science or engineering through research, and to encourage other women to pursue careers in these areas through the investigators' enhanced visibility as role models on the host campuses. In this project, the proposed activities which contribute to the second objective include: leading a seminar on comparative state politics which engages students, faculty and guests in a systematic examination of a problem (the capability of state parties to recruit and nominate candidates for public office); teaching a course in political science; and interacting with other visiting scholars at the Institute of Governmental Studies.